Theoretical Physics

A broad program of research in theoretical physics will
address outstanding issues of the fundamental
constituents of matter, and the laws and forces through
which they interact to build the universe that we
observe. Studies will address the crucial, but
incompletely understood, quantum-mechanical processes by
which quarks and gluons, when they are temporarily freed
from protons and neutrons in collisions at high-energy
accelerators, evolve back into common particles
such as the proton, and into exotic entities such as
the recently-discovered top quark and the still sought-after
Higgs boson. Other studies will center on the rapidly-developing
science of neutrinos, where recent experiments are stimulating
theoretical insights, from the dynamics of the sun to the evolution of
the universe, and are serving as a link between particle
physics and cosmology. Ongoing investigations will also develop superstring
theory, the exciting candidate for a unification of
gravity, felt by all matter, with the nuclear forces
felt by quarks and gluons, the electric and magnetic
forces felt by electrons, and weak forces felt by neutrinos.
The aim of superstring theory is a complete picture of the dynamic processes,
and even the geometry, that make up our world.